Campuswide Internet Access

Los Angeles Pierce College requests support from NSF to connect it's campus to the Internet. The College, located in the western San Fernando Valley has approximately 15,000 students. The college intends to connect through NETWAY a local Internet service provider used by all the colleges in the district. The campus needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.